Dissertation Research: Ethnic Groups, Mobility, and the Material World in an Emergent Market Economy

Under the direction of his advisors Drs. Kathleen Deagan and Elizabeth Wing, Mr. James Cusick will analyze material from the archaeological site of St. Augustine. The resulting data will provide the basis for his doctoral dissertation. St. Augustine, located in Florida, is one of the oldest European settlements in the New World. It was founded by the Spanish but also occupied by Minorcans as well as other ethnic groups. Because of its age and cultural complexity, the site has been extensively excavated. Its importance rests not only on the amount of archaeological material which has been recovered but also on the detailed archival records which contain information on individual families. Mr. Cusick will focus his attention on a sample of nine households of both Spanish and of Minorcan origin. Not only is archival information available for all but the living sites of each have been carefully excavated. Mr. Cusick will integrate the documentary evidence with information derived from analysis of material objects, floral, and faunal remains. He will examine how the economic and social strategies of these families changed over time and how these shifts are related to ethnic, economic, and status factors. The goal of this project is to examine the role which ethnicity plays in shaping household adaptation strategies. Minorcans were a minority group in St. Augustine, and with joint archaeological and archival data it will be possible to determine how such groups reacted, in comparison with the dominant Spanish majority, to changing economic and political conditions. One major theoretical question debated in the sociological literature concerns the extent to which response follows ethnic lines. Some argue it is more closely correlated with cross cutting economic distinctions. This research is important for several reasons. First, it provides a unique insight into mechanisms for ethnic adaptation and assimilation and, thus, is directly relevant to social issues faced by the United States today. Secondly, it will assist in the training of an extremely promising young scientist.